The ACC Synthase Genes and Polypeptides

9316475 Theologis The specific aims of the proposal are : 1) To isolate and structurally characterize the rest of the tomato ACC synthase genes. To characterize the expression characteristics of each tomato gene during growth and development and to define the type of inducer(s) responsible for their induction. To characterize the expression characteristics of the Arabidopsis ACS4 and ACS5 genes in the presence of indoleacetic acid (IAA) and Li+, respectively. To define the cisacting elements for IAA inducibility of the Arabidopsis ACS4 and Li+ responsive elements of the ACS5 gene. The elements will be defined by ExoIII deletion analysis of the promoter regions. Promoter constructs with the CAT reporter gene will be transiently assayed in Arabidopsis protoplasts. The functionally of the elements will be verified by stable transformation experiments. To inhibit growth of rice under hypoxia using antisense OS-ACs1 RNA and to define the cell types that express two rice genes OS-ACS1 and 3 under low O2 tension. To define the critical residues required for enzymatic activity of ACC synthase by in vitro mutagenesis and expression experiments in E. coli. To perform intermolecular complementation experiments in E. coli for determining whether ACC synthase is a dimer with two active sites. To inhibit ethylene dependent developmental processes by overexpression of dominant negative mutations of specific isoenzymes. To biochemically characterize the Arabidopsis ACC synthase isoenzymesfor defining their biochemical diversity. %%% Ethylene is an unique plant signaling molecule. The hydrocarbon gas, known as the fruit ripening hormone, controls many aspects of plant growth and development, and its synthesis is highly regulated. Recent experimental evidence indicates that the key enzyme in the ethylene biosynthetic pathway, 1-aminocyclopropane-1- carboxylic acid (ACC) synthase is encoded by a highly divergent multigene family in various mono-and dicotyledonous plant s. The members of each family are differentially regulated by various inducers and developmental stages. Studies on the structure and regulation of the ACC synthase genes in tomato (Lycopersicon esculentum), rice (Oryza sativa) and Arabidopsis thaliana are proposed here to gain insight into the details of the biochemical mechanisms that regulate their expression by various hormones and stress conditions as well as their role in regulating plant growth. Furthermore, in vitro mutagenesis studies are proposed to obtain fundamental knowledge about the structure and function of the ACC synthase protein. ***